Louis Stokes Alliances for Minority Participation (LSAMO): LSAMP-California Louis Stokes Alliance for Minority Participation Phase III

One of 28 national alliances, CAMP is entering the ninth year of a ten-year cooperative
agreement between the National Science Foundation and UC Irvine, the lead campus and
administrative center. The primary numerical goal is to double the number of B.S. degrees
granted to underrepresented students in SMET (science, mathematics, engineering, technology)
majors at the University of California. Offered at the eight general UC campuses, CAMP has
created a systemwide network of faculty, program staff and students working toward a common
set of measured outcomes. Goals include completion of the B.S. degree, preparation for and
transition to graduate school or the professional workplace. The program serves undergraduates
through enrichment opportunities and faculty mentored research supported by stipends. This
effort has contributed to a 78% increase in B.S. degrees granted by UC from the baseline year
(1990-91). Activities center on faculty mentored research experiences, collaborative learning,
presenting at scientific conferences, science writing and co-authorship, technology literacy, and
preparation for graduate school. Student achievement is disseminated through the Quarterly and
on-line, www.camp.uci.edu. A permanent allocation through the UC Regents Diversity
Initiative supports program infrastructure, administration, and expansion. Using a synergistic
approach, the California Alliance collaborates with affiliated initiatives such as UC LEADS and
AGEP (Alliance for Graduate Education and the Professoriate) that enhance baccalaureate degree
completion and continuation to advanced study. Responding to the paucity of minorities in
faculty positions in the university and nationwide, special emphasis is being placed on
encouraging students to prepare for a career in academia, and entering the professoriate. The
CAMP mission: Scientists and engineers are best prepared by other scientists and engineers who
exhibit and expect scholarly excellence.